Presidential Young Investigator Award

The primary research interest is in the area of opertions research, especially as applied to problems in the transportation/logistics area and in reginal planning. In the area of operations research methodology, emphasis is on large-scale nonlinear programming and variational inequality theory, a theory which unifies the fields of mathematical optimization, complementarity theory, fixed point theory, and the theory of partial differential equations. In the area of transportation/logistics planning, the main areas of interst are in the management of freight ransporation systems, especially railroad and intermodal operations and the modelling of hazardous materials movements.